Preparing Secondary STEM Teachers for High-Needs Settings Using Structured Mentoring

This Noyce Track 1 project aims to serve the national need of preparing highly-qualified STEM teachers. This project will support 17 Noyce Scholars in biology, chemistry, mathematics and physics by providing scholarships, enhanced course work, mentoring, experiential learning, and induction support. The proposed project components will enable high-achieving prospective teachers to become exemplary secondary STEM teachers who enact research-based instruction including active, inquiry-based learning and attention to the individual needs of every learner.

This project at Louisiana State University (LSU) includes partnerships across the LSU College of Science, the LSU College of Human Sciences and Education, the East Baton Rouge Parish School System, the Iberville Parish School System, the LSU Upward Bound Program, the LSU Cain Center College Readiness Program, the LSU College of Science Freshman Seminar, and LSU Enrollment Management. Project goals include robust new recruiting efforts, upgrades to the undergraduate curriculum, and a teacher development model based on a hierarchy of mentoring, experiential learning, and integrated STEM learning experiences. The project will provide 17 undergraduate future secondary biology, chemistry, mathematics and physics teachers (Noyce Scholars) with scholarships of up to $20,000 per year for up to three years to complete the LSU GeauxTeach STEM Teacher Preparation Program. Noyce Scholars will develop content-rich teaching and leadership skills through course work and classroom residency with continuous mentoring. An enhanced induction system leveraging the experience of graduates will support Noyce Scholars through their teaching commitment. The project components will enable high-achieving undergraduates to become exemplary secondary STEM teachers with extensive expertise in research-based instructional methods, including active, inquiry-based learning, and the ability to respond to the individual needs of all learners. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent does this project develop, implement, and support a high-quality teacher preparation program? (b) To what extent does the project recruit, prepare, and retain secondary STEM-teachers who are committed to working in high-need schools? (c) To what extent do Noyce scholars successfully complete project activities? (d) To what extent does the project foster effective collaboration among LSU colleges, faculty, scholars, and staff in partner parish school systems? (e) What factors facilitate or hinder progress toward project goals? (f) What progress has been made toward sustaining and scaling up project activities and strategies? The results of this project will be disseminated to help enhance the field. This will be achieved by means of presentations to local and national constituencies, including school districts and professional scientific and educational societies and by means of papers submitted to peer-reviewed journals. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.